Marketing and the Transformation of Small-Firm Practice

In the last decade legal services geared to individuals have been transformed. Two key developments have accounted for the transformation--advertising legal services and marketing prepaid plans. Ever since 1977 when the Supreme Court opened the way to explore new avenues for getting legal business by ruling that lawyers may advertise prices at which services are performed, notable changes have taken place. These developments have given entrepreneurial attorneys the opportunity to discuss a business- oriented approach to the delivery of legal services. Today, the legal needs of individuals are being met through a variety of new forms of private legal services such as legal insurance, store- front legal clinics, mass-market legal clinics, and non-for- profit services. This has resulted in major changes in the nature of work for the lawyer of individual clients in solo and small firm law practices. Many of these small firms have been eclipsed by a variety of these new mechanisms for delivering legal services to individuals. This project is designed to address the question of what the implications of these developments are for the professional organization of law. The purpose of the study is to analyze the impact of advertising, business, and other managerial techniques on the professional work setting of lawyers. Two broad questions will guide the study: (1) What is the depth, range, and penetration of these new trends in the context of the legal profession at-large? and (2) What are the implications of these developments for understanding professional work in the late twentieth century? Multiple methodologies will be used in the project including surveys of a random sample of practicing attorneys, in-depth interviews, and observation of selected sites in the New York metropolitan area. Emerging forms of law practice suggest that the older status professions, like newer occupational professions, are engaged in a paradoxical response to shifting economic realities. In the quest to maintain control over the market for service, these occupations may "re-professionalize" economic and political relations into new forms and into new settings, while, at the same time, "de-professionalizing" the tasks of employees in order to maintain that power and position. In the process, associational ties are transformed and a professional calling is re-constructed. This project will fill in the empirical pieces of this complex theme in one professional arena. Not only will the project make significant theoretical advances in our knowledge of legal professionalism but the changes taking place in the market structure, professional ideology, and internal organization of small-firm practice will have considerable importance to theories of organizations and professionalism in general.